Symposium on Degradation of Materials Due to Acid Rain, to be held in Arlington, Virginia, on June 16-19, 1985

The objective of this project is to hold a symposium to discuss the effect of acid rain on structures and materials.